RI: Small: Formalized Autonomous Planning from High-Level Task Descriptions in Natural Language

Task description and planning are critical elements of autonomous systems for many applications ranging from space exploration, autonomous driving, field robotics, to industrial automation. Autonomous systems, however, are still missing the capability of interpreting high-level human instructions and planning safe sequences of actions. For example, a human operator cannot simply deploy field robots by instructions such as "inspect this area," and a factory engineer cannot dynamically adapt workflows or execute complex production tasks without programming. Current autonomous systems face a fundamental tension: natural language is flexible but ambiguous, while formal planning methods are reliable but rigid. This project develops a theoretical framework that bridges natural language and formal planning through a controlled intermediate representation that both humans and autonomous systems can understand. The project makes it possible to program high-level tasks by using natural-language descriptions instead of low-level program procedures, thus improving the efficiency and flexibility of deploying autonomous systems.

This project brings together expressiveness and formalism in autonomous planning through three research thrusts. First, the project addresses the challenge of mapping conceptual task descriptions to unambiguous formal structures to account for phrasing variability and implicit context by repurposing a large language model (LLM). Second, the project answers the question of creating plans that are defined in a general-purposed domain under spatiotemporal and contextual constraints. Finally, the project implements an automatic verification mechanism to ensure that dynamically produced sequences of actions are both logically correct and practically executable under real-world environmental constraints. In addition, this project promotes the integration of research with education, including innovative teaching and project designs for experience-based learning as well as hand-on activities and robotic competition for K-12 STEM engagement.